After-School Hands-On Science Program

This two-year project will double or triple the time spent on science and mathematics by elementary students in Marshall County, West Virginia. The Science and Mathematics Education Enhancement Council (SciMEEC), an incorporated group of citizens, parents, teachers, and scientists, is collaborating with 12 public and 4 private schools in the county to develop 32 weekly after-school hands-on science and mathematics experiences for children in each grade, K through 6, whose parents wish to enroll them. Each of the seven levels will build upon those which have come before but will also be sufficiently self- contained to permit students to enter at any grade level. Two parents whose children are enrolled will be recruited and trained to serve as volunteer assistants for each of the school teachers who are involved in the project. Additional support is being provided by the corporate sector in both cash and in-kind contributions. At the end of NSF support the project will be a self-sustaining program through contributions from the corporate sector and fees from participants.